Fully Convex and Nonlinear Control Theory

9972241
Wolenski

The linear-quadratic model in control theory is the originator of many of
the powerful methods in engineering design, and it is still widely used in
many other disciplines as well. This is mainly because a solution to the
problem can be produced in a relatively easy way in a highly desirable
form. Two major drawbacks are that (1) not all systems can be adequately
approximated by linear-quadratic models and (2) the state space must be
relatively small for efficient implementation of the results. The fully
convex model featured in this proposal significantly broadens the
applicable scope of the linear-quadratic paradigm while still maintaining
many of its attractive features. In particular, the fully convex problem
permits hard constraints on the control variables, a situation often present
in applications but not accounted for in the traditional framework, and thus
will partly appease the drawback (1). The proposal seeks to unite modern
trends in Hamilton-Jacobi theory with the fully convex control model both
theoretically and computationally. To alleviate (2), the proposal seeks to
develop efficient algorithms based on the rich convex duality structure. A
secondary objective involves a detailed analysis on aspects of asymptotic
stability of nonlinear systems, in particular the construction and use of
Lyapunov functions.

Optimal control theory is a mathematical discipline with far reaching
applications throughout science, engineering, economics, and industry.
The existing theory is constantly being challenged by these applications,
which subsequently provides motivation for the development of more
sophisticated mathematical tools. This proposal aims at making
theoretical and computational progress in a mathematical model that is
widely used in applications but which has by no means reached its full
potential. The applicability of the proposed goals would be an increase in
the efficiency and a broadening of the scope of an important standard
modeling tool.